Collaborative Research: Meshless Methods: Mathematical Foundations and Applications

Recently Meshless Methods, and the closely related Generalized
Finite Element Methods, for the numerical solution of partial
differential equations came into the forefront of interest,
especially in the engineering community. For example, in the last
two years several engineering books on the subject
appeared, an international conference was organized, and many
engineering papers were published. These methods generalize the
classical Finite Element Method in that they are neither based on a
mesh nor on classical polynomial approximation. The theoretical underpinning
and general state of the art for these methods is similar to that
of the Finite Element Method in the 1960s, when already
engineering computations based on heuristic principles were done,
but the theory had not been developed. This research will address
the theoretical and implementational basis of these methods in
conjunction with applications. The most important feature of Meshless
Methods is their flexibility and potential. It is a challenge to
employ this flexibility to achieve their potential: the solution of
today's complex problems, with the consideration of the rapidly
decreasing ratio of cost of computer arithmetical operations to
the human effort. These issues will be investigated in this research
project.

The broader impact of the proposal lies in the mathematical and
computational science aspects of Meshless Methods. The broader
mathematical impact includes the understanding of these methods
and their potential, which will be directly reflected in the
performance of the methods on complex problems of solid and
fluid mechanics, for example, multiscale problems. It is likely
that the development of the mathematical foundation of Meshless
Methods will have similar or larger impact than the mathematical
development of the 1970s and 1980s had on the Finite Element Method.
The broader impact of this proposal is in its simultaneous
consideration of mathematical theory, modeling of engineering and
scientific problems, computational issues, and engineering
computational experience.